Restarting Conjugate Gradient Methods for Nonsymmetric Linear Equations

Restarting is one way to reduce storage and orthogonalization costs of conjugate gradient methods for large systems of nonsymmetric linear equations. However, restarting slows down the convergence. In the Arnoldi and GMRES versions of the conjugate gradient method, the associated eigenvalue problem can be solved. This investigation uses the eigenvalue problem to retain some of the information lost in the restart and thus improve the convergence of the linear equations solution method. This is done by adding a few approximate eigenvectors to the subspace that is used for the linear equations problem. Some preliminary experimentation show that the method can be very effective. Testing and theoretical research are needed to determine how well the method works with different types of matrices. More research is also needed to determine the best implementation.